SBIR Phase II: "RT Photocurable Preceramic Polymers to Si3N4 Ceramics"

This Small Business Innovation Research (SBIR) project will develop a program that will optimize poly (ethynyl) silazanes (PESZ) synthesis with an emphasis on improved efficiency and low production costs; will scale-up the production of PESZ polymers to pilot scale batch sizes; will optimize PESZ processing for component fabrication; will fabricate "real world" components, such as thrust deflectors and diesel engine particulate filters; and will obtain "real world" mechanical and performance testing data. Through the course of achieving these objectives, commercial opportunities will be pursued. This approach potentially permits the fabrication of extremely large ceramic matrix composites (CMCs) structures never before possible in much the same manner as large polymer matrix aircraft structures and boat hulls are currently manufactured.

The commercial application will be the fabrication of extremely large CMC structures that can be used in the aircraft industry.